Conference: ICM Satellite Conference on Synergies in Combinatorics and Theoretical Computer Science

This award supports participants in the Conference on Synergies in Combinatorics and Theoretical Computer Science to be held at the California Institute of Technology from August 3 -7, 2026. The interface between combinatorics and theoretical computer science has been at the forefront of numerous cornerstone developments in both areas. Developments at this interface have made a long-lasting impression on both fields, including the influential structure versus randomness paradigm, Boolean function analysis and hypercontractivity. Such developments have also expanded to other areas, such as probability theory, number theory, model theory, statistics and machine learning.

At this exciting interface, the 2026 ICM Satellite Conference on Synergies in Combinatorics and Theoretical Computer Science aims to bring together top experts and junior participants across theoretical computer science and combinatorics to reflect on the exciting current directions and developments, with a broad outlook to pave the way for future breakthroughs. The website of the conference is at https://icm2026-synergies-combitcs.github.io/